Mathematical Sciences: Exploitation of Symmetry in Discretization Methods

Boundary element and finite element discretizations of integral equations and partial differential equations over surfaces and bodies often lead to very large linear systems of equations. If the domain enjoys any symmetry, the computational effort involved in numerically solving these systems can be significantly reduced via the effective use of techniques based upon group representation theory which have recently been given by the investigators. This algebraic approach yields a decomposition of the original large problem into a number of smaller subproblems, each corresponding to an irreducible representation of the symmetry group of the domain. The size of each reduced problem is that of the large problem divided by a factor equal to the order of the group divided by the dimension of the representation. Previous work on exploiting symmetry has involved reducing partial differential equations to subdomains and adapting boundary conditions over the symmetry axes. Such techniques do not apply to boundary integral methods. It is proposed in this project to develop flexible codes which systematically implement reductions for a variety of symmetry structures. Constructions of symmetry-respecting discretizations and theoretical investigations relating to sparseness and parallel implementations will be carried out. Many problems in science and engineering have as their natural domain a surface or body which is symmetric in some way. For example, circles, circular disks, spheres, intervals, squares, and cubes, of any dimension, all have obvious symmetry. In addition to the symmetry of the domain of the problem, often the equations themselves reflect a symmetry in the physics of the problem. For example, the differential equations governing heat flow are symmetric, in the sense that heat will flow in all directions without any preferences in the absence of any outside stimulus. When both the equations and the domain of the problem enjoy some symmetry, algebraic techniques may be used to reduce the computational effort involved in numerically solving the given problem on the given domain. This project will focus on making the necessary theoretical investigations and developing algorithms for exploiting symmetry in the field of numerical analysis.